U.S.-Argentina Cooperative Research on Interaction of High Power Femtosecond Laser Pulses with Capillary DischargePlasmas

This award supports cooperative research on the interaction of fast, high energy laser pulses with capillary discharge plasmas, to be conducted by Dr. Jorge Rocca of Colorado State University and Dr. Oscar Martinez at the Comision Nacional de Energia Atomica (CNEA) in Argentina. They will investigate the interaction of high power ultrashort laser pulses with dense plasmas created by fast, high power density capillary discharges (10-100 GW/cc). Multiphoton excitation is expected to increase the optical gain in transitions in the recombining capillary plasmas. The femtosecond laser pulses will provide the multiphoton excitation and ionization as an instantaneous source of electron heating. This research will provide insight into the interaction of intense laser pulses with independently created plasmas. The ultimate goal is the development of tabletop laser sources in the XUV region of the electromagnetic spectrum. The high energy, fast laser will be constructed and combined with the compact high power density capillary discharges currently under study at Colorado. The CNEA group has expertise in generation of short laser pulses and their recently demonstrated techniques will be used to produce the femtosecond pulses. The equipment necessary for the implementation of these pulses will soon be available at Colorado State. The collaboration will thus combine the complementary skills of both groups to provide new insights into the interaction of the laser pulses and the high density plasmas, and also to demonstrate new amplification techniques in ultrashort, high power laser pulse generation.